CSR: Small: Enabling Renewable Energy Powered Sustainable High Performance Computer Architectures and Systems

The continuing decline of conventional fossil fuel has resulted in increasing energy costs all around the world. Meanwhile, fossil fuel-induced greenhouse gas emissions have profound implications for our environment. Renewable energy is generated from natural resources that are naturally replenished. Photovoltaic (PV) generation is gaining increased popularity due to its advantages such as absence of fuel cost, low maintenance, and no noise and wear due to the absence of moving parts. Designing renewable energy driven computer systems poses various challenges in terms of intelligent control strategies for better energy utilization, optimizations for reducing overhead and improving reliability. The proposed research will develop novel enabling technologies for high-performance computer architectures (e.g. multi-core CPU/GPU) that can achieve high efficiency and dependability in utilizing renewable energy. The research goal includes GPU power management schemes that can maximize a solar panel’s total energy output using load-matching and intelligently allocate the available solar power across multiple cores and threads so that maximum workload performance can be achieved. The proposed research project can greatly contribute to enabling high-performance computing systems to stay on track with its historic scaling and hence benefit numerous real-life applications. This project also contributes to society through engaging under-represented groups, research infrastructure dissemination for education and training, and outreach to renewable energy industries and research community.